A Scholarship Program in the Mathematical and Computer Sciences

This program provides scholarships to undergraduate and graduate students in mathematical and computer sciences. Targeted undergraduate students are in their final two years of baccalaureate studies, and graduate students are in M. S. degree programs in the two disciplines. Scholarship recipients are mentored one-on-one by faculty and by peers from both departments. They participate in ongoing research projects, professional forums, and industry-related activities. Their progress in their chosen curricula is monitored closely and a wide range of campus resources are available to ensure that they successfully finish their degrees within the project's two-year time frame.